US-UK Collaborative Research: High Resolution Electron Microscope Studies of Hydride Compounds

This award will support an ongoing collaborative project on the topic of high resolution electron beam studies of hydride compounds, with Dr. Patrick Herley, State University of New York at Stony Brook and Dr. W. Jones, Physical Chemistry Department, University of Cambridge, England. In recent studies of the solid state properties of light-metal hydrides, borohydrides and alanates, these investigators have shown that nanometer sized metallic particles can be produced in situ in the electron microscope by beam decomposition. Such particles are of considerable research interest because theoretical work indicates that, as the size of a metal or metal oxide particle decreases, unusual magnetic, electronic and optical behavior should result. This research effort has produced lattice images with atomic resolution of oxide-free copper and aluminum microparticles approximately 2-5 nanometers in diameter. Such particles are important commercially in the electronics industry as surface coatings and pastes for use in thin-device contacts in the manufacture of denser microcircuits. Likewise, high quality, electron-transparent single crystals of the alkali metals have been prepared and their plasmon spectra have been probed using electron-energy-loss spectroscopy. The importance of understanding the exact correlation between particle size and such properties as crystal perfection and surface electronic properties at an atomic level on catalytic activity cannot be overemphasized. This award will enable Dr. Herley to continue productive interaction with Dr. Jones and to use the unique High Resolution Electron Microscope facilities at Cambridge for these studies, which they propose to extend to other important metals, for example, silver, zinc and cadmium.